Unleashing the Power of Molecular Design and Synthesis for Science and Technology

Abstract 566 Busch Unleashing the Power of Molecular Design and Synthesis for Science and Technology The objectives of the proposed program are: (1) to create and establish the Kansas Advanced Synthesis Laboratory (KASL) for the following purposes: (a) to educate undergraduate and graduate student by providing the only laboratory courses in the State on advanced chemical synthesis, (b) to provide a special facility that will maintain special equipment and facilitate research in synthetic chemistry, (c) to develop a facility for custom synthesis (at low cost) of unavailable substances needed by other scientists in the State of Kansas, (d) to augment human resources by adding an outstanding synthetic chemist to the faculty in Kansas who will serve as the Director of KASL, a technician who will assist the Director, KASL Scholars, and KASL Summer Faculty Students, (e) to increase the productivity of synthetic chemists who have not recently been active in research by involving them in the educational and research components of KASL; (2) to complete the statewide computer network being established under EPSCoR for doing molecular science over and electronic highway, for the following purposes: (a) to provide a powerful molecular modeling capability on the desktop of involved molecular scientists throughout the state, (b) to facilitate collaborations through the realtime exchange of scientific information, including collaborative thinking, by molecular scientists, (c) to assist statewide in chemistry education by the sharing of chemistry software and presentations over the State of Kansas education network, (d) to provide access by molecular scientists to databases and software particularly germane to their science; and (3) to contribute to professional development by sponsoring an international conference on an important subject in the developing of new substances, the XIX International Symposium on Macrocyclic Chemistry.